SBIR Phase II: Low Cost Composite Plate for Proton Exchange Membrane (PEM) Fuel Cell

*** 9801080 Bloomfield, This Small Business Innovation Research Phase II project will produce a low cost proton exchange membrane fuel cell as a pollution free electric power source. The Proton Exchange Membrane (PEM) fuel cell is an efficient, pollution free power source. The relatively high cost and weight of fuel cells have limited use in transportation applications. Analytic Power will lower the cost and weight of PEM fuel cells by using a composite plate structure that is inserted in the injection mold. Three candidate bipolar plate designs that emerged from the Phase I project will be tested for longevity and optimum performance. To demonstrate the range of fuels that the PEM fuel cell may use for transportation applications, Analytic Power will conduct operational tests on fuel processors. The fuel cell will be tested on pure hydrogen, reformed diesel fuel, natural gas, propane and ammonia. Commercial applications of the research include clean power for vehicles and affordable residential power generation, both of which would directly benefit the NGV program. Transportation applications include automobiles, bicycles, mopeds, and industrial electric trucks. ***